NSF Engineering Research Center for Integrated Access Networks (CIAN)

The University of Arizona (Lead) with Nasser Peyghambarian as its director, and its partner institutions, the University of California at San Diego, the University of Southern California, the California Institute of Technology, the University of California at Berkeley, Columbia University, Stanford University, the University of California at Los Angeles, Norfolk State University and Tuskegee University propose to establish a Center for Integrated Access Networks (CIAN). The vision of CIAN is to create transformative technologies for optical access networks where virtually any application requiring any resource can be seamlessly and efficiently aggregated and interfaced with existing and future core networks in a cost-effective manner. Analogous to the evolution over decades of today’s computer laptop using massive integration of discrete electronic components, the CIAN vision would lead to the creation of the PC equivalent of the optical access network by employing optoelectronic integration to enable affordable and flexible access to any type of service, including delivery of data rates approaching 10 Gigabits/sec to a broad population base anywhere and at anytime.

The intellectual merit of CIAN includes: (1) transforming expensive discrete components-based subsystems into flexible cost-effective integrated optoelectronic subsystems to achieve scaleable and affordable high-data-rate access networks; and (2) demonstrating flexible network functionalities by moving services from the higher layers of the network closer to the physical layer. To achieve these goals, the CIAN strategic research program is organized into three integrated technical thrusts. Thrust 1: Optical Communication Systems and Networking will act as the “top-down” driver for the development and integration of components and devices to enable and demonstrate novel network functionalities for applications including ultra high-data-rate processing centers. Thrust 2: Subsystem Integration and Silicon Nanophotonics will explore signal conditioning, processing, reconfiguration, and control functions realized with various platforms including CMOS compatible nanostructures and silicon nanophotonics, and multifunctional integrated subsystems exploiting monolithic and heterogeneous integration. Thrust 3: Materials and Devices will act as the scientific and technological foundation by conducting research on new materials, device technologies, processing and integration methods for chip-scale integrated optoelectronics. The shared CIAN Testbed is a research facility that allows CIAN’s comprehensive vertically structured research efforts to be integrated, enabling effective systems-driven collaborative research among participants and the wider research and industrial community.

The broader impacts of CIAN’s research will be felt in every home and in the quality of life. Ultra-high data rate and cost effective services will contribute to business innovation, improve educational opportunities, enhance distribution of medical services, avoid the expense and human costs of unnecessary commuting, minimize the environmental impact from infrastructure and pollution, substantially reduce dependence on energy imports, enable new and varied entertainment opportunities, and increase overall national security. The infrastructure to carry these services is as precious a national resource as the air, rail, and road transportation system or the electrical power grid. Education, research, and knowledge transfer will be integrated through the team-based multidisciplinary environment of CIAN. The education, outreach and diversity efforts will focus on educating a skilled and diverse workforce including Native Americans, Hispanic Americans, and African Americans. CIAN will have an extensive pre-college education and outreach program. Creation of intellectual property and technology transfer will be a cornerstone of CIAN’s efforts.